Convective Processes in Climate and Numerical Weather Prediction

Several problems involving convective processes in climate and numerical weather prediction can be addressed by developing a cumulus parameterization incorporating life-cycle effects of cumulus convection and treating the dynamic as well as the thermodynamic interactions between cumulus convection and the large-scale flow. Incorporating life-cycle effects changes the vertical distribution of large-scale forcing. Additional changes in parameterized large-scale forcing by cumulus convection can be achieved by adding a simple formulation for the water budget of mesoscale stratiform precipitation to the parameterization for deep cumulus convection. Large-scale vorticity generation by cumulus convection can be parameterized on the basis of the evolution of potential vorticity in the presence of latent heat release, with the vorticity generation to be recovered after the effect of cumulus convection on the thermodynamic portion of the potential vorticity has been calculated using a conventional cumulus parameterization. The resulting parameterizations can be incorporated into a general circulation model to study their impact on simulation of large-scale dynamics and climate. Tracer transport by a cumulus ensemble can be parameterized, if tracer concentrations within the cumulus elements and sources due to cloud chemical processes are known. The cumulus parameterization incorporating cumulus life-cycle effects can be extended for this purpose. An important problem in numerical weather prediction is the "spin-up" of convective heating. A technique to initialize temperature and humidity fields consists of inverting a cumulus parameterization such that diagnosed heating rates will be produced by the parameterization with the initialized fields. Using such an initialization with a forecast model and studying its sensitivity to cumulus parameterization will yield important results on initialization and the role of physical processes in numerical weather prediction. This research is important because it seeks to develop more realistic ways to represent sub-grid scale processes in computer models of the climate system.